Kirkwood NSFNet Connection

9318917 Seamands This project connects Kirkwood Community College to NSFNET through the Iowa Communications Network over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.